Doctoral Dissertation Improvement Grant: La Iberia: The Emergence and Development of a Secondary Site in the Linea Vieja, Costa Rica

In conjunction with the National Museum of Costa Rica and under the supervision of Dr. Marilyn Masson, Jared Latimer will conduct archaeological investigations at the site of La Iberia. Located in the Atlantic Watershed of Costa Rica, La Iberia was a large village flourishing at approximately A.D. 1000, half a century before the Spanish Conquest. This was an important time period that was preceded by large cultural, political and economic changes in the region. For example, between A.D. 500-1000, populations began aggregating into large villages. There is an increase in economic trade and exchange, with goods being acquired both locally and also through long distance trading. There is also evidence of more powerful rulers, who mobilized substantial labor forces to build monumental architectural complexes within and between major settlements where the elite members of society lived.

This project investigates the fundamental research question of how and why these political developments occurred. Of particular interest is how complex societies were organized and maintained, and how did they change through time? The archaeological investigation employs an approach that focuses on elite political and economic interactions reflected in the archaeological record. The project will consider strategies for societal integration and the legitimation of political power in order to understand how elite members of society garnered and manipulated that power. These strategies varied greatly among different ancient cultures of the pre-modern world and different political systems correlate with alternative sets of archaeological signatures. For example, individuals may garner political power by controlling religious or esoteric knowledge. Alternatively, they may control basic material resources such as agrarian land, trade networks and valuable goods. Externally-focused leaders may emphasize the development of relationships with elites in other communities, and more internally-focused political systems concentrate their efforts on cultivating relationships within their own community. Changes through time observed in archaeological materials and features associated with elite residences reflect the development and transformations of power strategies. Understanding the key elements of political systems reflected at the site of La Iberia will determine how the site itself was founded and maintained in the larger context of a regional system of centers in Costa Rica's Atlantic Watershed. On a comparative level, this study contributes information from a new, poorly understood region to the larger question of the emergence of complex society and major societal transformations from mobile hunter-gatherer and horticultural groups to hierarchical agricultural civilizations.

Information gathered by this project will be disseminated to academics and other researchers through conventional publication venues. A web page linked to the Institute for Mesoamerican Studies (University at Albany SUNY) will disseminate new knowledge to the public about La Iberia and Lower Central American archaeology. Undergraduate students from both SUNY Albany and the University of Costa Rica have already agreed to participate in this research project, cultivating international learning and cooperation. Jared Latimer will continue his outreach activities by giving presentations at high schools and colleges in the U.S. Furthermore, the looting or outright destruction of archaeological sites due to agricultural or infrastructural development in Costa Rica has been pervasive. This project will work directly with the local community to promote the value of protecting the region's cultural patrimony for future investigations and for future generations.